The Periodic Steady State Impact of Power Electronic Loads on Power Systems.

9302892 Heydt The project concerns electric power quality, i.e. the distortion of the ideal sinusoidal voltage and current voltage and current waveshapes in a power system because of the presence of electronic devices (rectifiers, adjustable speed machine drives, light dimmers, power conditioners, etc.). In order to analyze the impact of these load types on a power systems, it is generally necessary to solve a set of differential equations at each load. Computational savings would result if the transient part of the solution could be skipped and only the steady-state periodic solution found. Computationally efficient solution methods are being sought. ***